Statistics and dynamics in topological states of matter

TECHNICAL SUMMARY

This award supports research on the theory of topological quantum materials and related educational activities. The properties of quantum correlated systems are strikingly different from conventional matter. One of the most dramatic examples is the fractional charge and statistics in the fractional quantum Hall effect. Charge fractionalization is by now convincingly proven by experiment. At the same time, a direct experimental observation of the fractional statistics of anyons poses a major challenge. This challenge has recently attracted much attention because of a possibility of non-Abelian anyonic statistics at some quantum Hall filling factors. Possible applications as well as intrinsic interest of non-Abelian anyons have stimulated attempts to find such particles in nature.

The first thrust of this project is motivated by current experiments in this direction and will address transport signatures of theoretically proposed fractional quantum Hall states which can be used for their detection. Latest experiments provide evidence in support of an unpolarized or partially polarized state at the filling factor 5/2. Possible unpolarized and partially polarized states will be investigated.

The second thrust focuses on the derivation of far-from-equilibrium fluctuation-dissipation theorems in chiral systems and their implications for deducing the structure of quantum Hall states from transport properties.

The third thrust recognizes that Quantum Hall liquids are representatives of a much broader class of topological insulators. Homogeneous topological insulators have recently received great attention. Less is known about quenched disorder effects. The third thrust addresses metal-insulator transitions in topological insulators with a focus on electronic transport. The PI will also investigate rectification in nanostructures based on topological insulators. The methods will include bosonization, the Keldysh technique, the algebraic theory of anyons, conformal field theory and other analytical and numerical tools.

This award supports several educational activities. Most of the budget will be directed for graduate student support. The PI will also involve undergraduates in his research. Graduate and undergraduate research on novel materials will contribute to the scientific education of the US workforce. The PI will incorporate new developments in university courses. He will participate in outreach beyond the academic community on various levels.

NONTECHNICAL SUMMARY

This award provides support for research on the theory of topological quantum materials and related educational activities. Modern technology allows confining semiconductors on the nanoscale in one or two dimensions. The states of matter formed by electrons in these confined systems cannot be described as one- and two-dimensional analogs of electronic matter in three-dimensional semiconductors. The understanding of those novel states and the transformations among them is a key problem in condensed matter physics. The fractional quantum Hall effect provides a striking example. In quantum Hall systems electrons behave as though they were split into several pieces, called anyons, whose charge is a fraction of the electron charge and whose properties are dramatically different from all other known particles. These exotic properties may open a road to a practical implementation of quantum computing. Many questions about anyons in quantum Hall systems remain open. In some important situations it is not known what happens when several are rearranged anyons. The PI will investigate this issue in two-dimensional systems in the first thrust of the research.

Quantum Hall liquids are representatives of a much broader class of materials called topological insulators. Like ordinary insulators, for example rubber, topological insulators do not conduct electricity though the interior of the material. Unlike ordinary insulators, topological insulators are able to conduct electricity on their edges or boundaries through the formation of a new state of matter. Among the known topological insulators are compounds made of the elements bismuth and selenium, and bismuth and tellurium. The PI will investigate the effects of impurities and imperfections characteristic of real topological insulator materials on the electronic properties of topological insulators. In particular, the PI will address a possibility to build one of the most important elements of electric circuits, a diode, from topological materials.

This award supports several educational activities. Most of the budget will be directed for graduate student support. The PI will also involve undergraduates in his research. Graduate and undergraduate research on novel materials will contribute to the scientific education of the US workforce. The PI will incorporate new developments in university courses. He will participate in outreach beyond the academic community on various levels.